CISE Research Instrumentation

A 64 processor nCUBE multicomputer shall be acquired and dedicated to the support of research in computer and information science and engineering. The equipment will be used for several research projects to be undertaken by an interdisciplinary group of faculty. This equipment supports the proposed projects' common goal of developing novel parallel methods for advanced engineering projects. In particular, the following projects shall be explored: Asynchronous algorithmic techniques for Computational Fluid Dynamic Run-time support for data distribution using formal methods Parallel-specific algorithms in neural network learning for Nonlinear Control Systems, Computational Electromagnetics, and Chemical Process Flowsheeting. This interdisciplinary project shall bring together applications practitioners and Computer Science researchers. The equipment is representative of proposed teraflop computers. thus, the equipment will be used to develop prototypes of codes that can be scaled to run on larger computing equipment as it becomes available. The collective result of this research will be improved technological infrastructure for scientific computation.